GSE/RES Collaborative proposal: How parents and their elementary school-age children solve science problems together: The role of gender and ethnicity

Intellectual Merit: This project is investigating the role of gender and ethnicity in how parents (mothers and fathers) solve science problems with their young daughters and sons. Few studies examine the influence of parents, and the combined effects of gender and ethnicity on science problem solving and interest. The researchers are examining how parent gender, child gender, and ethnicity affect science attitudes, problem-solving approaches (as well as parental help and encouragement) and the discipline of science problem that they prefer. The theoretical framework includes Vygotsky's and Rogoff's sociocultural theories, Bronfenbrenner's ecological systems theory and Bem's gender schema theory. One hundred and fifty fourth-grade boys and girls and their parents (with a balance of Hispanic and non-Hispanic families) are observed while solving six life and physical science problems together. Qualitative data (from parent-child problem-solving tasks and a child attitude interview) and quantitative data (from parent-child problem-solving tasks, a child science assessment, and a parental questionnaire) are collected and analyzed using content analysis and inferential statistics.

Broader impacts: The research findings may assist researchers, parents and teachers to improve the participation and achievement of girls and Hispanic students in science disciplines. The dissemination plan includes presentations to professional audiences through conference presentations and publications, as well as brochures and websites for parents and teachers with advice about encouraging and assisting their students with science. Materials for parents will be made available to parent organizations, parenting magazines, libraries, and child care facilities. Brochures for teachers will be available to school districts, at local and national teacher conferences, and to pre-service teachers. This study is providing research training for both undergraduate and graduate students, and is being carried out by researchers in predominantly-undergraduate universities.